Surveying the Digital Future: A Longitudinal International Study of the Individual and Social Effects of PC/Internet Technology

This award supports an important study of the impacts of the Internet and PC technology on society and families. Using survey methods and well-accepted techniques for social science data analysis, the research
team will conduct a long-term longitudinal study. An important component of the work will include involvement with comparable research teams in several other countries. The project is undertaken under the auspices of the UCLA Center for Communications Policy. Research results will be disseminated, and research data will be made available for others to use in further study and analysis.